A System for Connectionist Speech Recognition Research

Morgan This project is constructing a computer optimized toward speech recognition algorithms, and is evaluating speech algorithms on the machine. A fundamental goal of the project is to explore the architectural changes needed for speech processing in future production systems. The new computer is a low-degree multiprocessor, each node of which contains a high-speed general- purpose processor, a multiple-accumulate processor, memory, and a communications interface for the multiprocessor interconnect. The computer will also be capable of being extended to include analog processing or smart sensors. This new machine will provide the performance of supercomputers at a small fraction of their cost on the speech recognition problem, and will contribute to the development of speech recognition systems for everyday use in commodity computers.